Tectonic Implications of Remagnetizations in the Appalachians

Extensive remagnetization of rocks in orogenic zones is a widespread phenomenon, which complicates the use of this technique in determining rotation and translation of the rock bodies involved. Causes of such remagnetization are not well understood. Late Paleozoic remagnetizations are common in the Appalachians and have been recognized in redbeds and Limestones ranging in age from the Cambrian to the carboniferous. Analysis of current data indicate the remagnetization occurred over approximately 60 m.y. and began earlier in the southern Appalachians. This project will collect additional redbed and limestone paleomagnetic samples with the purpose of developing an adequate spatial and temporal data base on remagnetization in the Appalachians and to explore several hypotheses for the underlying causes of such remagnetizations in tectonic mountain belts.